Travel Support for 1992 Symposium on Interactive 3D GraphicsChapel Hill, North Carolina; March 30-April 1, 1992

This award provides funds to support student attendance of the 1992 Symposium on Interactive 3D Graphics. The 1992 Symposium, to be held March 29 - April 1, 1992 is a follow-up to two previous, highly successful meetings on the subject held in 1986 and 1990.